RAMHS: Three Dimensional Distribution of Particle Concentration and Size Spectra in the South Atlantic: Indicator of Oceanic Processes

The distribution of particulate matter is a sensitive indicator in surface and botton waters of physical and biological processes such as primary production, upwelling, large-scale eddies, resuspension and advection of sediments, and boundary- layer mixing. This proposal requests funding to participate on five (5) cruises in the South Atlantic Ventilation Experiment (SAVE) and a McCartney et al. hydrographic cruise in the South Atlantic to determine the three-dimensional distribution and size spectra of particulate matter in the South Atlantic by interfacing a transmissometer with a CTD for hydrographic profiles and analyzing water samples for particle concentrations and size distributions throughout the water column using a Coulter counter. These data will be combied with transects of transmissometer data collected this year during two other cruises in the South Atlantic. The particle data will be used o determine the location and intensity of the processes mentioned above and will be correlated with other hydrographic data to study their causes and effects.